Support for Compactors for the LACM Invertebrates Collection

The University of Southern California's (USC) Allan Hancock Foundation (AHF) polychaete collection was donated to the Los Angeles County Museum of Natural History (LACM) in 1988. The collection is the largest of its kind in the western United States and second largest in the country, maintaining the most extensive holdings in eastern Pacific polychaetes in the world, yet is cosmopolitan in its total coverage. Following this acquisition, the LACM hired a polychaete collection manager in 1988 and a curator in 1990. Along with a small wet collection of sponges, platyhelminths, nemerteans, and tunicates donated to LACM in 1992 by USC, the polychaete collection and staff are still housed on the USC campus under extremely crowded conditions. As part of its commitment to these collections and personnel, the LACM is presently constructing office/research space for the polychaete staff, and completely remodelling an expansive ground floor room to specifically accommodate compactors and rails for the polychaete and miscellaneous invertebrates collections. With this collection space utilizing compactors, the areas storage capacity can be fully minimized, allowing ample growth of the polychaete collection. This project will support the purchase and installation of all compactor rails, carriages, and shelves designed for this space. %%% Collections of this sort are fundamentally important not only as resources for primary research endeavors but also for a broad spectrum of other activities. For example, specimens and their catalogues are essential resources for environmental impact assessment. As well these collections provide valuable exhibit and educational opportunities with appeal to all levels of application.